Competitive Processes and Outcomes of Collective Decision

This proposal involves empirical and theoretical studies of collective decision making (e.g committees) with a special emphasis on the processes through which the participants sufficiently resolve associated conflict of interest to achieve a decision while striving to satisfy their own purposes within the formal rules governing the decision process of the group. Thus, the project's focus is on those collective decision situations in which the conflict of interests is sufficiently compelling that they are resolved through a competitive process, governed by the formal rules, rather than through a cooperative search for equity. Ultimately this research could have important implications for collective decisions involving multiple jurisdictions such as siting a facility for disposal of hazardous wastes where one community may have the right to exclude the site from its own territory but be unable to site the facility in another jurisdiction.